SBIR Phase II: Millimeter Wave Imaging System Using Evanescent Wave Coupling Antenna

WaveBand Corp. will develop a low-cost millimeter wave radiometric imaging system, using a single, high quality millimeter wave detector with a rapidly scanning low-cost antenna. Millimeter wave imaging systems have many important applications, including aircraft navigation, fire detection, contraband detection, automobile collision avoidance, ice mapping and remote sensing of the earth's resources.